MRI: Acquistion of A Scalable Instrument for Discovery through Computing

Proposal #: CNS 08-21527
PI(s): Raghavan, Padma
Chen, Long-Quing; Hudson, Peter J.; Kandemir, Mahmut T.; Smith, Brian K.
Institution: Pennsylvania State University
University Park, PA 16802-700
Title: MRI/Acq.: Acq.of A Scalable Instrument for Discovery through Computing
MRI Acquisition of a Scalable Instrument for Discovery through Computing

This award from the Major Research Instrumentation Program (MRI)
provides funds for the acquisition of a terascale advanced computing
instrument at the Pennsylvania State University. The instrument
will enable researchers from seven disciplines (biological, materials
and social sciences, computer and information science, engineering,
education, and geosciences), to perform virtual experiments toward
discovery and design through computing. Research projects concern:
predictive network modeling of infectious disease dynamics, designing
new piezoelectric materials, designing next-generation chip
multiprocessors, modeling human interactions to promote learning
in virtual communities, and the development of a critical zone
environmental observatory. Despite their diversity, these projects
share computational scalability challenges to be addressed for
enabling scientific advances that often depend on solving large
problems representing a sufficient level of detail and complexity.
The instrument will form the core of a multidisciplinary collaborative
environment to enable transformative approaches to address the
challenges of scaling at multiple levels. It will support a set of
integrated research, education, training, and outreach activities
to: (i) enable collaborative scaling across projects through the
transfer of scaling approaches from one domain into another, while
addressing algorithmic, system, or instrument scaling challenges
within individual projects, (ii) promote technology-transfer through
industrial partnerships, and (iii) grow and enhance the diversity
of the limited computational science talent pool.